Increasing Participation of Minorities in CISE Disciplines

9401736 York This award provides funds to bring together a group of computer scientists, mathematicians, educators, and social scientists for a series of 2 workshops to: 1. Identify the root causes of the lack of participation of minorities in Computer Science research and education 2. To develop specific mechanisms which federal agencies can implement to begin solving the problem The workshop will address four broad areas: 1. Computer Science pipeline issues 2. Mentoring of minority graduate students and junior faculty 3. Academic professional development 4. Race and culture issues. ***